SHF:Small:Designing Architectures to be Formally Verifiable

Computer systems are exceedingly complicated, and a major challenge is
verifying that they are correct in all situations. Hardware industry
accordingly spends more effort on verification than it does on actual
design, yet functional design bugs still exist in today's computer
systems, including shipped processor chips from major vendors. This
project seeks to overcome this verification challenge through a
verification-aware design methodology.

This project designs systems such that they can be verified with existing
formal verification methodologies, rather than expecting arbitrary designs
to be verifiable. Rather than design a system and then try to verify it,
the proposed philosophy is to understand the capabilities of existing verification
methodologies and then try to design the best possible systems that are compatible
with these methodologies. In this work, the verification is performed
with existing verification tools and the innovation is in the design.
The broad impact of this work is the development of computer systems,
or portions thereof, that are formally verified and thus provably correct
in all cases.